Summer Workshop in Economics to be held at Northwestern University, Evanston, IL, Summer of 1990-1992

For the last six years, the J.L. Kellog Graduate School of Management at Northwestern University has hosted a series of summer workshops on selected topics in economics and management. Each of the four most recent workshops has been fairly narrowly focused on an area of current research, bringing together researchers working directly in the fields of emphasis. Each has been organized around a program of formal seminars with a schedule that was sufficiently flexible to leave ample time for informal discussion and interaction. Each workshops has been one week long so that participants would be in attendance for the entire conference. The 1990-1992 workshops will follow the same format used in the last four years. The general theme of the workshop will vary across the three years. In 1990, the workshop will be centered around topics in dynamic economics. The sub- topics include dynamic models of international trade, dynamic models of public finance, models of economic growth and its determinants, and computation of equilibrium in dynamic models. The topics for the second and third years of the workshop will be decided at a later date. Possible topics include: Internal Organization of the Firm, Labor Markets and Compensation, Strategic Interaction in Imperfectly Competitive Markets, Game Theory, and Monetary Economics. This conference series should be supported because of the productivity of its past conferences, the importance for the advance of economic theory of generating more research on dynamic economic models and the other topics for future conferences, the emphasis on assisting promising young theorists early in their careers and the contributions of the outstanding Northwestern faculty to the conference.